The Importance of Pre- and Post Recruitment Processes to theStructure of a Fish Population

Processes which limit or modify population abundance are of general interest to ecologists. In marine systems, two alternative hypotheses are currently the focus of attention. The recruitment limitation hypothesis suggests that recruitment form the larval phase sets the upper limit in population size, or the variation in recruitment is subsequently reflected as variation in population abundance. Another view suggests that post- recruitment processes, particularly competition for space or food, predation or migration are most important in limiting or regulating sizes of demersal populations. Dr. Sale and collaborators suggest a more pluralistic approach is required to adequately explain variability in population structure. They will examine this by testing the relative importance of pre- and post-recruitment processes to a Gulf of Maine fish population at different spatial scales and in different habitats. Specifically they will examine: 1) the importance of larval supply, settlement and post- settlement mortality to recruitment variability at a range of spatial scales and in different habitats 2) the importance of recruitment and post-recruitment processes to the limitation or determination of population size in different habitats This approach will simultaneously be investigating both pre- and post-recruitment processes at different spatial scales and in very different habitats. Additionally, this research will allow for comparison of the factors affecting fish populations between temperate and tropical latitudes.